Development of a Unique Interactive Growth Chamber for Magnetic Nanostructures

9704196 Lagally This award is for the partial support of a new ultra-high vacuum chamber for the investigation of nanostructure magnetism. The chamber will be a mobile self-contained system that will be located at the Synchrotron Radiation Center, University of Wisconsin. It will be coupled to one of three existing chambers built specifically for measuring magnetic circular dichroism, spin-resolved photoelectron spectroscopy, and x-ray resonant magnetic scattering. These methods provide element resolved magnetic moments, spin- split energy bands, and magnetic roughness, respectively. The proposed growth chamber will provide a wide variety of magnetic nanostructures with well characterized morphologies for these magnetic measurements. Special emphasis will be placed on sputter deposited magnetic nanostructures and comparisons between sputter deposited and evaporated nanostructures. %%%% This award is for the partial support of a new ultra-high vacuum chamber for the investigation of nanostructure magnetism. The chamber will be a mobile self-contained system that will be located at the Synchrotron Radiation Center, University of Wisconsin. It will be coupled to one of three existing chambers built specifically for measuring magnetic circular dichroism, spin-resolved photoelectron spectroscopy, and x-ray resonant magnetic scattering. These methods provide element resolved magnetic moments, spin- split energy bands, and magnetic roughness, respectively. The proposed growth chamber will provide a wide variety of magnetic nanostructures with well characterized morphologies for these magnetic measurements. Special emphasis will be placed on sputter deposited magnetic nanostructures and comparisons between sputter deposited and evaporated nanostructures. The fundamental knowledge gained and the availability of the chamber will facilitate magnetic device development and will lead to significant fundamental research advances in the understanding of magnetic thin films and interfaces. ***